Symposium on the Development of the Vascular System, The University of Wisconsin, Madison, April 23 thru 26, 1989Madison, Wisconsin

Support is requested for a symposium on the development of the vascular system, to be held in Madison, Wisconsin on April 23-26, 1989. The object of this symposium is to define the contemporary questions and chart the principal directions of future research in the field. This symposium will bring together, for the first time, a group of junior and senior investigators from the basic and clinical sciences to examine the field of vascular development. The events underlying the development of the vascular system are central to our understanding of pathologic and reparative angiogenesis, of would healing, of regulatory mechanisms during morphogenesis, of the mechanisms by which many teratogenic changes are induced during development. %%% The field of angiogenesis is undergoing rapid development and change. This is the first meeting devoted exclusively to this topic and will bring together investigators with differing backgrounds who are studying similar problems.